Microphysical Studies of Precipitation Using the Advanced Polarimetric DFVLR Radar

The objectives of this research are the analysis and interpretation of polarization observations made with the new polarimetric radar in West Germany, in 1988 and the acquisition of new measurements. The latter will include differential propagation phase shift and differential backscatter phase shift. These and other measurements are designed to improve the ability to infer and discriminate the microphysical structure of clouds and precipitation.